Periodic Orbit Quantization by Signal Processing Methods

The quantum-classical correspondence of non-linear dynamical systems is investigated using signal-processing methods. This approach has been shown to be capable of extracting long-time quantum information from short-time periodic orbits. The theory is applied to a number of problems of current interest. In addition, a small amount of effort is devoted to looking at Pade summation techniques to accomplish the needed summations.